RUI: Observations of Circumnuclear Rings in Starburst Spiral Galaxies and Supernovae Monitoring

ABSTRACT D. ELMEGREEN This Research at Undergraduate Institutions (RUI) award is for support of two distinct but logistically and scientifically related projects in observational astronomy. The first project concerns starbursts in circumnuclear rings. Spiral galaxies with starburst activity are often barred with nuclear rings located near the inner Lindblad resonances (ILR's). The theory of gas flow indicates that an ILR tends to trap gas that is flowing in because of bar torques. The collected gas forms stars if a critical density is exceeded. The project will compare bar properties (bar luminosity fraction, radial profile, arm/interarm contrast) in bursting and non- bursting galaxies. The star-forming properties of nuclear rings will also be studied by monitoring 45 barred galaxies for ILR ring variation due to supernovae or other events. Spectacular star formation rates in ILR ring bursts suggest at least 0.5 ILR supernova per year in the sample of 45 galaxies. For various reasons, previous ILR supernovae are likely to have been missed by existing search programs. Data for the project will consist of data from our existing Kitt Peak National Observatory (KPNO) 2.1m observations of several starburst galaxies with high angular resolution in J and K bands, which reveal ring structure that is described in published carbon monoxide (CO), Hydrogen-alpha and Hubble Space Telescope (HST) observations. The results from the analysis of the photometry of these rings will enable one to estimate ages and stellar densities for comparison with theoretical stability thresholds. Existing and planned observations on the Burrell-Schmidt 0.6 meter telescope in the B and I band will supplement planned BVRI 0.8 meter Vassar Observatory observations to assess the bar properties of each galaxy, and 0.8 meter observations will be used for the variability search. The second project is to monitor extragalactic supernovae discovered by others. Broadband (BVRI) light curves are a n important component in understanding the nature of supernova explosions, serving as a constraint on explosion and precursor models, a test of the homogeneity of spectroscopic classification, a possible basis for the calibration of type Ia distance indicators, a classification criterion for some type II events, as well as important data for the determination of some astrophysical parameters (such as distance, age at time of discovery, explosion energy) for individual events. Unlike spectroscopic studies, light curve monitoring requires a modest aperture, but a sizable time commitment. Searches typically find at least a half-dozen outbursts that will remain within the photometric reach of the 0.8 meter telescope for weeks or months each year. This project, which would build upon our present collaboration with our colleagues in the Keck Northeast Astronomy Consortium, would monitor each light curve on every clear night until reaching signal-to-noise limits. The new 0.8m telescope and CCD camera at the Vassar College Observatory is expected to achieve first light in March 1997. This telescope will be dedicated to the light curve project as well as to appropriate segments of the barred spiral project, especially the search for variability. Both projects will also make use of facilities at the national astronomy observatories, and will involve undergraduate students at every stage.